U.S.-Taiwan Cooperative Research: Decomposition of 15N-labled fine roots and fate of N they release in western Oregon, USA and Taiwanese LTER sites

0227642
Harmon

This is a three-year project submitted by Dr. Mark Harmon, Oregon State University, in collaboration with Dr. Hen-Biau King, Taiwan Forestry Research Institute, to conduct a comparative study on decomposition of 15N-labeled fine roots and fate of N releases in Western Oregon, USA and Taiwan LTER sites. Root decomposition is a fundamental process in forest ecosystems. Understanding of fine root decomposition and its N dynamics is important in understanding controls over soil strength maintenance, soil organic matter formation, ecosystem N cycling, and ecosystem responses to disturbance and climate changes. This cross-site comparison project between the U.S. and Taiwan can contribute significantly to International Long-Term Ecological Cooperation, and provide a valuable research experience for U.S. students. This project is jointly supported by the National Science Council of Taiwan and NSF.